Program Analysis: Logics, Algorithms, and Application

This project is undertaking a systematic investigation of a general class of structural program analysis problems. The term structural program analysis refers to compile-time program analyses that deal with the types and structure of values computed by programs. This class of program analyses is broad, including within it the classical dataflow analyses of C and FORTRAN compilers, type inference for languages such as ML, and analysis of class membership of values in object-oriented languages. The primary goal of this work is the synthesis of set constraint techniques for structural program analysis in a common framework; in particular, an implementation of set constraints suitable for use in a general class of program analysis problems will be developed and distributed for use in research and teaching. There has been considerable activity directed towards using set constraints for structural analyses in recent years. Most of the work has been directed either towards studying the theory of set constraints itself, or at applications of set constraints to particular problems. Set-based analysis is the exception; set- based analysis provides a high-level characterization of a class of program analyses in terms of set constraints. Currently, however, there is no general-purpose implementation of set constraints available for experimentation with set-based (or any other class of) analyses. This system is expected to be expressive enough to encompass all set-based analyses and many analyses that are not set-based. Aside from the primary goal of developing an `off-the-shelf` implementation of set constraints that can be used in many settings, the project also pursues three secondary goals. The first goal is to develop a common technical language for structural analyses. The second goal is to describe the structure of the design space for structural program analyses using this common technical framework. The tradeoffs between accuracy and speed in structural analyses are poorly understood. By studying these problems in an abstract setting, it should be possible to make general statements about the relative efficiency and precision of various program analysis techniques that apply across a wide spectrum of applications. The third goal is to design algorithms using the above results. General algorithms are sought that would provide the best precision-speed tradeoffs for various classes of analysis problems.